Integrated Analysis of the Data Recorded During the WhittierNarrows Earthquake of 10/1/87 and Implications for a Major Earthquake in Los Angeles Area

Integrated analysis of data recorded during the 1987 Whittier earthquake on strong ground shaking and its effects on structures is conducted. The study focuses on investigations of (1) the physical process associated with the earthquake source, (2) wave propagation, (3) response of structures. Current knowledge and current procedures in earthquake engineering are tested to determine the adequacies or deficiencies. The project will produce a comprehensive document of data which will be a basic reference for all future work on this earthquake. Current design methods and techniques are calibrated and areas for improvements are to be suggested.